Characterization of a Germ Line Expressed Gene of DrosophilaMelanogaster

gonadal (gdl) is a gene that is differentially expressed in the male and female germ lines of Drosophila. This proposal describes experiments that address gdl function in the germ line, sex- specific expression of the gdl gene products, and complex regulation of the gene during gametogenesis. The specific goals of the research are summarized as follows. First, complementing genetic techniques will be used to isolate gdl mutant alleles. The gdl mutants will then be characterized as to specific phenotype, with the overall objective being to determine the role gdl plays in the male and/or female germ line. Second, Dr. Schulz will generate antibodies directed against gdl proteins so as to facilitate the characterization of the gene products. The objective is to determine whether the proteins have common or different functions during spermatogenesis and oogenesis. Third, he will study gdl expression in mutations affecting germ cell differentiation. These studies may identify genes that regulate gdl and should provide additional information on gene expression in the early germ line. Additionally, gdl may serve as a sensitive sex specific differentiation marker during gametogenesis. Overall, the extensive analysis of the gdl gene should enhance the current understanding of germ cell differentiation in Drosophila.